Animating Viscoplastic Materials with Dynamically Changing Meshes

ABSTRACT
0204377
Shewchuk, Jonathan
U of Calif Berkeley

We intend to develop fast, versatile, and visually accurate computational models for viscoplas-tic
materials ranging from stiff, non-compliant solids to low viscosity fluids. We are designing
these models for applications where visual realism, computation speed, and robustness are the
predominant requirements (with numerical accuracy being subordinate). Examples of such
applications include real-time interactive training simulations (e.g. surgical simulation or haz-ardous
duty simulations) and off-line generation of visualizations (e.g. cinematic effects or
accident reenactment).
To achieve this goal, we must develop fast, guaranteed-quality methods for generating and in-crementally
updating unstructured (irregular) triangular and tetrahedral meshes. Dynamically changing meshes are a necessity to model the complete range of viscoplastic materials, espe-cially where large deformations and mixing may occur. Thus, the actions of the numerical simulation and the remeshing algorithms must be tightly integrated, especially if we wish to minimize errors due to interpolation and reinterpolation. To ensure that our dynamic meshing algorithms and implementations are useful for other applications as well, we will develop a general methodology for communicating information between the numerical simulation and
the mesh generator.